CAREER: Understanding Stellar Overflows

AST-9702484 Abstract - A Frank Bipolar outflows and highly collimated jets are nearly ubiquitous features associated with stellar mass loss. From Young Stellar Objects (YSOs) to Luminous Blue Variables (LBVs) and Planetary Nebulae (PNe) - the stellar cradle to the grave - there exists clear evidence for collimated gaseous flows in the form of narrow high velocity streams or extended bipolar lobes. In YSOs, LBVs and PNe collimated highly supersonic outflows are observed to be transporting prodigious amounts of energy and momentum from a central star . Outflows and jets must play a significant dynamical role in the evolution of the parent stars. The similarity of jets and bipolar outflows across the Hertzsprung- Russell (H-R) diagram must tell us something fundamental and quite general about the nature of stellar evolution, as well as the interaction of stars with their environments. A large database of high resolution observations , including observations from the Hubble Space Telescope (HST)) are available. A general, well tested suite of theory for explaining outflow collimation and propagation could serve as a powerful diagnostic tool linking the outflows to their often obscured sources. This could initiate substantial progress in two of the most fundamental issues facing modern astronomy: the need to understand stellar birth and stellar death. The research goals of this project are ambitious but attainable. First, to develop and refine such a general theory of collimated stellar outflows by detailing the basic physics which drives the collimation process. Second, to extend our understanding of the collimation and propagation of the outflows to include more realistic physics such as the effect of microphysical processes and magnetic fields. The research focuses on two major investigations. One goal of this study is to use PNe and PPNe morphologies to determine the route which stars like the sun follow as they evolve from the Giant to the Dwarf stage. The second project is a long range study of radiation-gasdynamic and magneto-gasdynamic collimation of jets from Young Stellar Objects. The final products of the research will be a suite of well tested tools which can bridge the gap between the theory and reality, allowing the histories of individual objects and classes of objects to be recovered. The educational and outreach goals of the project are equally ambitious: to use the accessibility inherent to numerical simulations (i.e. graphics and animations) along with the visual power of real and "synthetic" bipolar outflow observations as the core of a series of innovative programs in curriculum development, interactive planetarium displays and middle school outreach efforts. The efforts as a "popular" science writer and as a regular contributer to both DISCOVER and ASTRONOMY magazines have provided experiences in effective strategies for bringing science to wider audiences. These skills, and the fruits of the research, will be integrated into education initiatives which will introduce Planetarium visitors, college and middle school students to stellar astronomy as well as to wider issues in the workings of science as a whole.